Standard Star Optical CCD Photometry

Landolt, Arlo 95-28177 Dr. Landolt will complete a career long work on photometric standard star sequences. The goals of this effort are to establish UBVRI sequences approaching the 21st magnitude at the celestial equator, to establish UBVRI sequences at the +45 deg declination zone, to refine some previously observed sequences, to compare the CCDphot and photoelectric data for some of the +45 deg sequences, and to monitor and reduce the results for the secondary program objects as time and resources permit. ***